Mathematical Sciences: Topological Embeddings in Piecewise Linear Manifolds

Venema will investigate properties of manifolds, both topological manifolds and the more restricted class of piecewise linear (PL) manifolds, with special emphasis on topological imbeddings into PL 4-manifolds. (1) Suppose X is a compact subset of the PL 4-manifold M. Under what conditions does X have arbitrarily close neighborhoods which collapse to 1-dimensional spines? (2) Suppose F is a closed surface and W has the homotopy type of F. Does there exist a topological imbedding of F into W which is a homotopy equivalence? (3) Under what natural additional hypotheses can one prove that two compacta imbedded in a manifold have homeomorphic complements if and only if they have the same shape? (4) Is the approximation theorem valid for codimension two imbeddings of any manifolds other than k-cells? These questions and others point to basic deficiencies in our understanding of very natural geometric objects, namely topological and PL-manifolds, even in low dimensions. Such manifolds arise in physics as the solutions of ordinary and differential equations set in the 4-dimensional space-time in which we live.